Observations and Dynamics of the Indonesian Throughflow

Sprintall/Hautala

Funds are provided to conduct an extensive analysis of observations of the
Indonesian throughflow in conjunction with a simple, reduced gravity numerical
model to elucidate the dynamics acting on seasonal to annual time scales. The
observational data set consist a network of shallow pressure gauges, underway
ADCP and CTD surface measurements, a current meter mooring, hydrographic
and XBT sections, wind data and sea surface altimetry. The main scientific
question that will be addressed are: (1) what are the mean and variability of the
throughflow; (2) what are the processes that cause variability on annual, semi-
annual, and intraseasonal time scales; (3) what is the impact of this variability on
heat and salt transports; (4) how does the South Java Current alter the water
mass structure in the basin, and (5) what are the changes associated with the
1997-1998 El Nino event.